Recruiting & Retaining Students with Disabilities in Engineering, Science and Mathematics

The Task Force on Women, Minorities and the Handicapped in Science and Technology recommended that actions be taken to increase the participation of persons with disabilities in science and engineering. To this point, most attention to these educational reforms has been given to precollege science and mathematics education, but colleges and universities must be involved if this goal is to be reach. The goals of this project are to recruit and retain students with disabilities in the engineering and science programs at the University of Washington. The project includes four components: (1) A live-in summer science program for secondary-level students who have disabilities; (2) A mentoring program for the participating summer students that will rely heavily on year-round computer-based interactions with scientists ( many of whom have disabilities); (3) A "diversity awareness" program for university faculty and staff and local pre-college science teachers; and (4) An information dissemination program that will include outreach to science and math teachers in the northwest region. Materials for recruiting and retaining students with disabilities will be produced and distributed in a variety of forms -- videotape; audiotape; computer disks; electronic files accessible over the Internet network; and written brochures in standard and large print, and braille. A conference will provide an opportunity for dissemination of materials for recruitment/retention as well as those developed specifically for the summer program. They will be adaptable for use by other schools. The quarterly "diversity awareness" workshops for faculty, staff, students, and local science teachers, are intended to increase the awareness of barriers faced by students with disabilities and to present creative and practical approaches for providing access to instruction and campus services to students with disabilities. Methods developed in this project will serve as models for recruiting and retaining students with disabilities in other colleges at the University of Washington as well as on other campuses across the country.